Random Combinatorial Structures

We plan to study several random structures, such as the random graphs and
mappings, the random Young tableaux and the plane integer partitions. While
a tremendous progress has been achieved in analysis of the Erdos-Renyi
random graph process, much less is known about the transitional behavior of the
directed graph version of this process. One obstacle is a dearth of
enumeratve results for directed graphs. In cooperation with Wormald
the proponent plans to work on asymptotic counts of digraphs by the vertex
degrees, using some ideas of their prior research on undirected graphs. The
proponent is confident that this study will result in a detailed description of
the phase transition in the random digraph. The proponent plans to analyze an
alternative graph process suggested by Lovasz, in which the new edges appear with
probabilities proportional to the resulting vertex degrees. This analysis will require
solving a host of natural extensions of classic graph enumeration problems. Inspired by
the work of Propp and Wilson, and Dalal-Schmutz, the proponent plans to study the
collapse time of the compositions of the independent random mappings. The proponent will
continue a study of the likely shapes of random plane and solid diagrams, and will try
to answer open questions formulated in two recent studies of an optimal partitioning
problem, conducted jointly with Borgs, Chayes and Mertens.

However idealized, the random graph methodology provides a way to describe dynamics
of large evolving networks. We hope that our work on the graph processes will contribute
to a better understanding of an "abrupt change" phenomenon characteristic
for real-life networks, when addition of few connections leads to formation of a tight
"core". Our continued study of the partitioning problem will provide a deeper insight
into critical dependence of its algorithmic complexity on the relations between the random
input parameters. We believe that this analysis will serve as a model
for study of a broader class of combinatorial optimization problems important in
applications, such as the "knapsack" problem and the "bin packing" problems.